The Record of American Democracy, 1984-1990

9321212 King Located at the Harvard Government Data Center is an extremely detailed and extensive set of election data from numerous offices in electoral precincts in every state and the District of Columbia. This project will make these data useful for academic purposes; specifically, the data will be cleaned and documented, supplemented with variables from the U.S. Census (such as race, income, occupation and education), and then made generally available to the scholarly community. In addition, these data will be used to help solve an important problem in generalizing individual-level behavior from aggregate data. ***